Minmax relations for graphs

Minmax relations for graphs
Abstract

A graph is a mathematical model for various networks, including
communication networks, transportation networks, and social networks. Many
important network parameters, like the capability, flexibility, and
reliability, are often very difficult to compute. The goal of this project
is to identify graphs for which some of these parameters are efficiently
computable. To accomplish this, the PI proposes to study the structure of
optimal solutions. These structural results are fundamentally important
and they will have numerous applications on computing many related graph
parameters.

To be precise, the PI proposes to study the following three fundamental
problems in combinatorial optimization:
1. To characterize graphs for which the clutter of (edge-sets of)
odd st-paths is ideal/Mengerian. This problem generalizes the
ordinary matching problem as well as the ordinary edge-disjoint
paths problem.
2. To characterize graphs for which the clutter of (vertex-set of)
odd circuits is ideal/Mengerian. This is a problem very closely
related to the t-perfect graph problem, which arises naturally
in the study of stable sets in graphs. One of the goals of this
project is to discover the connections between these two
problems.
3. To characterize perfectly 2-edge-connected graphs. This is a
problem originated from the study of the Traveling Salesman
Problem. One of its attractive properties is that being
perfectly 2-edge-connected is preserved under the "dual" of the
induced-minor relation, which is a graph containment relation
preserved by many important graph properties.
All the proposed problems are fundamental and attractive. They resemble
the perfect graph problem in many ways: they all involve beautiful minmax
relations, they all have polyhedral and algorithmic implications, and they
all generalize many known results.